Oceanographic Technical Services 2003-2005, R/V Pelican

0316957
Rabalais
This 3-year award to Louisiana Universities Marine Consortium provides support for technical services during NSF-funded programs on R/V Pelican, a 105' general purpose research vessel operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. LUMCON will provide one shipboard technician on each cruise of R/V Pelican to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.
***